The Second International Workshop on Human & Machine Cognition, Special Topic: Android Epistemology

Robotics as a new technology has revolutionized many industries: robots build cars, assemble watches andcomputers, and cooperate in large-scale construction work. Soon, cars may actually be robots. This industrial revolution has reawakened interest in many old philosophical issues about the nature of the mental and its relation to the world -- as well as some new ones about what kind of mental states of a robot, if any, can be said to constitute knowledge of its world, and the extent to which such knowledge must be legitimized by reference to the robot's interactions with human knowers. This workshop will bring together a number of people from Several disciplines (e.g., philosophy, psychology, computer science, cognitive science) to address these issues in the light of recent work on constructivist approaches to AI, multi-agent artifacts and human-machine interaction.